Acquisition of Earth Material Processing Equipment for Investigating Active and Ancient Orogenic and Geologic Systems

0210213
Schneider

A grant available through the Instrumentation and Facilities program of NSF's Division of Earth Sciences will allow Ohio University's Department of Geological Sciences to acquire rock and mineral sample preparation equipment and to upgrade existing petrographic laboratory facilities. These facilities are to be used for both instructional and research proposes in an effort to efficiently characterize and prepare samples prior to, and with the purpose of, geochemical and isotopic analyses. Students and faculty alike will benefit from the technology upgrade. Projects that take advantage of these facilities reflect understanding active geologic processes and how ancient examples are preserved in the rock record in order to advance our geological understanding of planet earth.
***